Long Range Holographic Instrument for Motion Analysis of Large Surfaces

This is a Phase II SBIR proposal to develop holographic techniques and instrumentation to structural and earthquake engineering applications. The Phase I research produced viable holography tools, and achieved a successful demonstration of the technique from the instrumented water tank experiment. The Phase II research will design an operational system through an experiment to test the necessary components for a prototype instrument employing double pulse, TV holographic interferometry. Experimental and analytical study in advanced optical methods in hologram recording and data interpretation will be conducted. Methods in structural engineering and measurement of earthquake effects will be investigated using the techniques developed in this project. The research will lead to development of advanced techniques for measurements and monitoring of structural response and damage assessment. It has a high potential to contribute to the solutions of nation's civil engineering infrastructure problems such as aging transportation systems and to the mitigation of earthquake and other natural hazards in terms of improved safety resistance of existing structures.